Purchase of a High Resolution Graphics System for Three-Dimensional Visualization

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will assist the Department of Chemistry at Columbia University to acquire a high resolution graphics system for 3-D visualization. This equipment will enhance research in a number of areas that include visualization of peptide and protein structures, quantum chemical wavefunctions and electron densities, classical electrostatic fields, and molecular dynamics simulations of polymers and dense fluids. A workstation network of fast , modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a `computer network` also serves as a development environment for new theoretical codes and algorithms, provides state-of-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing.